Light And Mass In The Pisces-Perseus Supercluster

This award, made to one of the pioneers and leaders in the field of large-scale structure studies, will fund the investigation of peculiar motions in the Perseus-Pisces supercluster of galaxies. The detailed motions of the galaxies observed, will, in turn, permit the determination of the mass distribution in this very massive and relatively near-by supercluster. This should help to understand how such very large and highly structured collections of galaxies are formed.